Conference: Northeast Probability Seminar 2023-2025

The Northeast Probability Seminar is a series that has run for over twenty years. This award will support the continuation of these meetings through 2023, 2024, and 2025. The 2023 meeting is scheduled to take place on November 16-17 at New York University. The 2024 meeting is planned for the City University of New York, and the 2025 meeting is planned for Columbia University. The steering committee includes faculty from all these institutions and several others in and near New York City. These meetings have four plenary lectures, two on Thursday morning and two on Friday morning. Thursday and Friday afternoons are set aside for sessions where 25 junior participants will have the chance to give ten-minute presentations with questions of their recent work.

The Northeast Probability Seminar gives researchers in a dense geographic area an opportunity to exchange fresh ideas and discuss new theories in a highly active area of mathematical research with many interdisciplinary applications. It also provides junior researchers with an opportunity to network with each other and with senior mathematicians. Regional meetings like this one are especially important because they provide an opportunity to establish new collaborations.

The Seminar Web site: https://probability.commons.gc.cuny.edu/22nd-northeast-probability-seminar/